Acquisition of a High Performance Compute Server for Solid Earth Research at Caltech

9505990 Gurnis This award provides 55% of the funds required for the acquisition of a computer system that will be installed and operated in the Seismological Laboratory at the California Institute of Technology. Caltech is committed to providing the remaining funds necessary for the acquisition. The equipment will be used primarily in computer-intensive research that includes geophysical modeling of the structure and processes occurring in the Earth's crust and mantle regions. It will be managed as a research and teaching resource available to staff and students involved in solid earth sciences research at Caltech. ***